Electro-optic Polymers for Wideband Terahertz Applications

THz optoelectronic devices, imaging, and spectroscopy have the potential for widespread use in commercial applications. This program will focus on the development of wideband THz devices based on electro-optic polymer composites. Focus will be placed on two important applications: (1) the development of a THz emitter-detector pair that has significantly wider bandwidth than is currently available and (2) the development of large area THz detectors for direct imaging applications. The goal is not merely to demonstrate the highest frequency of detection but rather to develop an ultra-wide bandwidth emitter-detector pair that will have significant impact on spectroscopic applications in the THz regime. In addition to these two major goals, detailed measurements and analysis will be performed and on various electro-optic and photorefractive polymer composites in the THz regime. These studies will help to develop a body of knowledge about these materials and devices that will be needed to understand and bridge the gap between very high speed electronic devices and photonic ones.